EAGER: RNA-Directed Programmable Protein Modification

Proteins are important molecules that help cells work properly, and sometimes they need to be modified by adding chemical modifications to do their jobs. Protein modification is a process that allows regulating and improving the function, availability, recycling, or changing its structure, affecting interaction with other molecules. Classical protein modification studies use methods that are not scalable and often involve the modification of proteins that are not part of the experiment. Therefore, the project team proposed to use a special system called CRISPR/dCas13, which can be programmed to find specific messenger RNAs that are needed as templates to translate into proteins and also modify the protein simultaneously. By attaching a protein-modifying enzyme, for example, a kinase, to dCas13, the system can add a phosphate group to a protein as it is being synthesized. This process is called phosphorylation and is important for controlling how proteins work. The project will test this tool in plants like Arabidopsis to make it easier to study and improve plant traits, such as drought tolerance and the precise role of protein modification.

The ability to precisely modify proteins within living cells is a central goal in biology and biotechnology, with broad applications such as in agriculture, therapeutic development, and synthetic biology. However, existing strategies for modifying endogenous proteins within living cells face key limitations. This project aims to establish a programmable, RNA-guided platform for precise in vivo protein phosphorylation in plants by leveraging dCas13-kinase fusion proteins. By fusing catalytically inactive Cas13d to protein kinases and directing them to specific mRNAs via guide RNAs, the system enables co-translational phosphorylation of nascent polypeptides without disrupting translation. The approach will be validated using synthetic reporter assays and optimized for kinase selection, gRNA positioning, and off-target minimization. Subsequent evaluation targeting endogenous proteins in Arabidopsis and Nicotiana, with phenotypic and proteomic analyses, will be carried out to assess specificity and functional outcomes. This technology addresses limitations of current protein modification methods, such as low efficiency, off-target effects, and complex engineering, by providing a readily programmable, efficient, and highly specific toolkit. The proposed innovation will enable the development of biotechnology applications and has broad implications for functional proteomics, synthetic biology, crop improvement, etc